Underground Space in the City: Rock Engineering Issues in the Development of Urban Underground Environment

As part of Pacific Rocks 2000, the Fourth North American Rock Mechanics Symposium (NARMS), the American Rock Mechanics Association (ARMA) Foundation with support from the National Science Foundation will hold a one-day workshop, Underground Space in the City: Rock Engineering Issues in the Development of the Urban Underground Environment on July 30, 2000 at the University of Washington in Seattle. The workshop will explore the current international use of underground urban space, describe by example unique applications of rock mechanics and rock engineering in an urban setting, generate research ideas and researchable issues that will foster new innovation in the urban underground environment. The ARMA Foundation will produce a report documenting the workshop and describing research needs. Proceedings of the workshop will also be available. Information on the workshop can be found on the Pacific Rocks page of www.armarocks.org.